EAGER: Composing Pathways for Collaboration Between Computer Science Researchers and Practitioners (CompPath)

Cleveland State University, together with the Teaching Institute for Excellence in STEM (TIES), will design and pilot ways for computer science (CS) faculty to engage with and contribute to preK-12 CS learning opportunities in their communities. The two-year project, called CompPath (for Composing Pathways for Collaboration Between Computer Science Researchers and Practitioners) will explore the creation of meaningful and authentic connections between cutting-edge computer science research and K-12. It will emphasize the translation of research products in a manner that broadens participation by being inclusive of, and appealing to, women, people of color, and other under-represented minorities.

Specifically, the project will

> Create demonstrative collaborations between researchers that will serve as models to other computing researchers across the country;
> Collect an inventory of opportunities that a CS researcher can leverage to incorporate outreach activities in their research project in a sustainable and authentic manner;
> Design and launch a searchable clearinghouse infrastructure that will allow CS researchers and other Science, Technology, Engineering and Mathematics (STEM)-related groups located in proximate regions to easily find each other; and
> Host a series of "design studio" events that are focused on meaningful collaborations between CS researchers and providers of Broadening Participation in Computing resources.

In its dissemination, the project will leverage the network of the STEM Learning Ecosystems Community of Practice (SLECoP), an initiative comprising 68 communities across the US focused on dynamic, cross-sector STEM engagement